SBIR Phase I: Reactive Distillation for Vinyl Ether Synthesis

This Small Business Innovation Research Phase I project is to establish the
technical and economic feasibility of a novel technology to utilize reactive distillation to
produce vinyl ethers, the production of which is otherwise plagued by equilibrium
limitations and side reactions. The program will combine the catalysis expertise of KSE,
Inc. with the reactive distillation strengths of the Department of Chemical Engineering of
the University of Massachusetts, to develop the new technology. The resulting work
product will not only advance the practice of the field of organic synthesis, but also will
provide useful case study examples for academic teaching and research.
The Phase I program requires completion of three tasks. First, research is needed
to improve the catalyst compositions to promote vinyl ether synthesis, to match distillation
requirements. Second, laboratory reactor tests, including reactive distillation, must be
performed to guide catalyst improvement and to demonstrate success of the technology.
Third, design and competitive economic analyses are required to complete the feasibility
assessment. The proposed research will solve a major problem in vinyl ether synthesis,
reducing byproducts and eliminating solvents. It will also provide valuable teaching and
research tools for the practice of reactive distillation.
Commercial applications of the reactive distillation technology will allow
production of vinyl ethers as an important building block in organic synthesis,
eliminating the energy intensive acetylene route based on World War II technology. It
allows new synthesis methods to be used, by eliminating critical equilibrium and
byproduct constraints.